SBIR Phase II: Active Control of Gas Turbine Engines Using Eddy Current Sensors

This Small Business Innovation Research (SBIR) Phase II project will develop and test algorithms for active control of blade vibration and engine stability (stall and surge) using an eddy current sensor (ECS) array. The approach utilizes signal analysis and diagnostic tools in active control algorithms for the detection of engine faults. Phase II will extend the functionality of the ECS system beyond diagnostics to active and automatic real-time control of gas turbine engines.

An ECS array is currently the favored sensor system for installation on the Joint Strike Fighter, in which a software system upgrade capable of using ECS data to compute the necessary indicators and estimate the disturbances needed is desirable for active vibration and engine stability control. It would reduce the number of new sensors needed for active control and potentially save millions of dollars. Large commercial markets are indicated in commercial aircraft and gas turbine power plants.